The Mechanics of Complex Fluids: Drop Breakup, Coalescence and Multiparticle Dynamics in Viscoalastic Liquids

Abstract
CTS- 9970567
L. Gary Leal, UCSB

The mechanics of drop breakup and coalescence in complex fluids and the anisotropic microstructure in shearing polymeric suspensions of rigid particles will be investigated. The viscoelastic behavior of the polymeric liquids and the area of relevance in polymer material processing connect these topics. Experimental studies in a four-roll mill will be performed with a microscale PIV system for various polymeric blends in order to quantify and understand the mechanisms that control the drop size distribution in a blending process of non-Newtonian fluids, and the effect of the compatibilizers that act as surfactants. The long particle chains aligned to the flow direction of uniform and bidisperse particle systems in polymeric fluid flow will be studied as a function of the rheological properties, particle size, concentration, and shear rate of the mean flow. Tracer particles in a matched index of refraction suspension will be recorded in a Couette device.
The proposed research has relevance to polymeric material processing and its optimization.